Synthetic, Structural and Mechanistic Investigations of New Derivatives of the Early Transition Metals Having Reactive Ligands

Dr. John E. Bercaw, Chemistry Department, California Institute of Technology, is supported by the Inorganic, Bioinorganic, and Organometallic Chemistry Program of the Chemistry Division for synthetic, structural, and mechanistic investigations of early transition metal complexes having reactive ligands. A series of Lewis acidic group 4 and 5 metal complexes which contain adjacent Lewis base sites contained in coordinated ligands will be prepared. Because of the amphoteric nature of these compounds new pathways for the activation of H-X sigma bonds will be opened and the oxidation state of the metal can be adjusted through the control of pH. The mechanisms of new reaction types will be determined and comparisons will be made with the more usual bent sandwich analogues of the metals. Catalysts based on transition metal compounds are used extensively in the chemical industry and important new developments in organo-transition metal chemistry often center on the development of new catalysts or on the optimization of existing ones. The objective of this research is to prepare and structurally characterize new types of early transition-metal compounds that contain `non-innocent` groups attached to the metal. These groups, called ligands, will bear reactive sites that will allow the behavior of the transition metal to be altered in novel, systematic ways. The new compounds should activate bonds involving hydrogen and may catalyze olefin polymerization. The ultimate goal is to develop catalysts to selectively transform readily available substances such as hydrocarbons, water, and ammonia into more valuable products.